Laboratory Equipment for an Undergraduate Biotechnology Program

The equipment obtained through this project is enabling this institution to provide an appropriate theoretical and practical background for students enrolling in a Biotechnology minor that addresses both the need for entry-level technicians in the growing field of biotechnology and the preparation of undergraduates who will go on to pursue advanced academic degrees. The new minor includes three laboratory courses (Molecular Biology Laboratory, Tissue Culture Techniques, and Protein Laboratory Techniques) that are designed to give each student substantial amounts of "hands-on" experience in basic and specialized techniques in these areas. Grant funds are being used to purchase essential equipment of three types: (a) small equipment needed to equip four student stations (four students/station); (b) several intensive-use items such as HPLCs and laminar flow hoods; and (c) specialty equipment that will introduce undergraduates to "state-of-the-art" technology (e.g., a DNA synthesizer). Such equipment is providing for a smooth sequence of offerings, ranging from "special topic" experiences for only a few students to the complete courses with labs that are essential to creating a well defined curriculum. This biotechnology program is regarded as having good potential for becoming a national model that can be replicated in other institutions. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.